Invigorating Undergraduate Education in Chemistry, Mathematics and Psychology via Wireless Technology

Interdisciplinary (99) This project is adapting and implementing wireless technology to create a more stimulating learning environment for undergraduate students in mathematics and science classrooms. The more active learning environment in which the students answer questions and solve problems rather than watching instructors describe theories and solve problems is increasing student performance on examinations and student satisfaction with chemistry, mathematics and psychology courses. Previous pilot implementations are being refined and implemented in large class sections. The project is also having a significant impact on the preparation of future teachers by giving preservice teachers experience in the use of technology to enhance learning.